U.S.-China Collaborative Research: Investigation of Inter- faces in Low Temperature Oxygen Sensors Based on Rare-Earth Fluorides

9604950 Fergus This award supports initiation of collaborative research in materials science between Jeffrey Fergus, Auburn University, and Wang Yinbang, Beijing University of Science and Technology. The research involves evaluation of the potential of several lanthanide fluorides in thin-film low- temperature oxygen sensors. Oxygen sensors are used in industrial processing and control applications; improved understanding of the mechanisms of lanthanum fluoride sensors will be of significant value to the electrochemical community. The project will make use of complementary facilities and expertise at the two universities. Auburn University will provide expertise in development and testing of chemical sensors, and will perform the electrochemical characterization of the sensor performance. Beijing University of Science and Technology will provide the thin- film fabrication and surface characterization expertise.